2020 Great Plains Operator Theory Symposium

This award provides funding to help defray the expenses of participants in the "Great Plains Operator Theory Symposium," a conference series in which the 2020 event will take place during June 1-June 5, 2020, on the campus of Washington University in St. Louis.

From a modest beginning in 1981, the Great Plains Operator Theory Symposium has evolved into a major international conference on operator theory and operator algebra. This symposium focuses on recent developments in Operator Algebras and Operator Theory. Leading researchers will discuss important new developments and propose problems for future research. This symposium aims to be a conference covering broad areas with large participation, including many young people, who are encouraged to present their research. This award gives early career researchers, members of underrepresented groups, and researchers not funded by NSF an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity widely known. More information will be made available at: http://www.math.wustl.edu/~ylsong/GPOTS.php